Cell Permeable Probes for Free Magnesium Ion

This research is directed toward the development of cell permeable metallochromic indicators for free magnesium ion. Preliminary data suggest that tropolone derivatives possess both the necessary selectivity for magnesium and against other ions and adequate absorbance spectra for this use. Current goals are to synthesize additional derivatives of the tropolone compounds already prepared to enhance their absorbance and binding properties. Potential magnesium sensitive dyes will be tested in three cell systems chosen because of their specific magnesium-related properties: (1) Ehrlich ascites cells, for which the intracellular free magnesium concentration has been determined, (2) Murine S49 lymphoma cells which have a hormone-sensitive magnesium influx (but not efflux) system, and thus exhibit a hormone- sensitive change in cell magnesium content, and (3) synchronized cultures of Schizosaccharomyces pombe which exhibit a 5 to 10-fold change in total cell magnesium content over a short, specific period in the cell cycle. Magnesium ion activates or inhibits a numer of important enzyme systems, and magnesium transport appears to be regulated by a variety of hormones. Detailed studies of the possible role of free intracellular magnesium in regulation of cellular functions have been severely hampered, however, by the lack of a relatively simple, easily applied method to determine the free intracellular magnesium ion concentration on a physiologically relevant time scale. This research, if successful, will provide much needed probes for studies of the role of magnesium ion in cellular physiology.